Block Thresholding Methods for Adaptive Wavelet Function Estimation: Theory and Applications

This research studies two interrelated function estimation problems,
nonparametric regression and linear inverse problems, using wavelet
methods via the approach of block thresholding and ideal adaptation
with oracle. The goals are to build a bridge between the traditional
multivariate normal decision theory and the adaptive wavelet function
estimation, and to develop a family of estimators that achieve
simultaneously three objectives: adaptivity, spatial adaptivity,
and computational efficiency. A major innovation and a consistent
theme throughout the research is the use of block shrinkage
methods which include the standard term-by-term thresholding as a
special case. Block thresholding is studied via the approach of
ideal adaptation with oracle. It will be demonstrated that block
thresholding serves as a bridge between the classical normal decision
theory and adaptive wavelet function estimation. This leads to a
systematic way of developing a coherent set of rate-optimal estimators
with good empirical performance, all of which may be useful in different
estimation problems.

To fully understand why block thresholding works ``better''
than the standard term-by-term thresholding, and more generally,
separable rules, I will explore the connection between adaptability
and information-pooling in general orthogonal series estimation, of
which wavelets are a special case. Preliminary results show that
separable rules lack adaptability; they are necessarily not fully
rate-adaptive. A key to adaptively achieve the exact minimax rate is
information-pooling. I will further carry out research in this topic
and will derive a lower bound on the amount of information-pooling
required for achieving full global adaptivity. These results together
will offer a deeper understanding of the benefit of information-pooling
in nonparametric function estimation, and also serve as a guide for
the construction of fully adaptive estimators. Besides theoretical
investigation, I am also interested in applications of the wavelet
methods. I am collaborating with colleagues on using wavelet methods
for archiving and retrieval of medical images from tomographic databases.